Supplement of Effects of Small-Scale Turbulence and Shear on Marine Dinoglagellates: A Pilot Study

The rates of photosynthesis of phytoplankton in the ocean are affected not only by the availability of light and nutrients, but also by the turbulence in the water column. Dr. Thomas will continue his studies on the effects of small scale turbulence on the growth rate, cell division, and cell morphology of marine phytoplankton using laboratory cultures. He will examine two red tide species using varying degrees of intermittent turbulence. In addition, he will investigate the effects of reduced temperature and turbulence on the viability and behavior of the organisms. This research will aid in the prediction of red tides in both time and space.